Supercomputer Summer Intitutes for PANCOMP Consortium University of Georgia, Athens, GA; December 6-11, 1987 & March,20-25, 1988

The Advanced Computational Methods Center at The University of Georgia will conduct two one-week Supercomputer Summer Institutes for members of the PANCOMP consortium, a consortium established to provide education and access to high performance computers for historically black colleges and universities. The first Institute on vector programming is designed to introduce experienced FORTRAN programmers to supercomputers, in particular the CYBER 205. Topics covered will include an overview of current supercomputer architectures, access methods, vector programming, timing and optimization techniques, debugging aids, and the use of application libraries and utilities. The second Institute on advanced vector programming is designed to be a follow-on to both the NSF-sponsored Supercomputer Summer Institute for PANCOMP conducted by the ACMC last summer and the proposed introductory Institute. The success of the initial Institute generated a request for additional training from the participants. This course will begin with a review of basic CYBER 205 concepts and vector programming and include topics such as machine language formats, global optimization techniques, scalar and vector optimization methods, and networking and data communications. This Institute is designed to train the participants to a depth that will enable them to return to their home institutions and disseminate information about supercomputers and assist their users in the use of the CYBER 205.